Vibrational Spectra and Structure of Macromolecules

The goal of this research program is to develop and apply more physically
accurate potential energy functions for polymeric macromolecules than are
presently available, in particular functions that, in addition to the
usual prediction of structures and energies, give spectroscopically
accurate reproduction of vibrational frequencies (which is not achieved by
current standard functions). This is accomplished by the spectroscopically
determined force field (SDFF) methodology previously developed in this
laboratory. Under this proposal, current SDFFs will be extended to include
polarization, which is very important in describing properties of polar
groups such as amides. A new protocol for determining parameters in the
energy function assures the avoidance of correlations and indeterminacy
in these quantities. The newly developed formalism for molecular dynamics
in internal coordinates (ICMD) will be implemented on macromolecular
systems. The hydrocarbon SDFF will be applied to the analysis and
resolution of questions concerning structural transitions and the origin
of spectral bands in trans-1,4-polybutadiene and band splittings in cis-
1,4-polybutadiene. The SDFF to be developed for the amide group will be
used to calculate the normal modes of nylons 6 and 66 to provide deeper
insights into the analysis of vibrational and inelastic neutron scattering
spectra of these polymers. The new ICMD formalism will be applied to
calculations on crystalline polyethylene, with the particular goals of
correcting published spectral intensity inaccuracies and of comparing
spectral predictions from normal mode analysis with those from the Fourier
transformation of the time-autocorrelation function of the dipole moment.

In addition to its intellectual contributions, this research program will
have broader impacts. New research results will be incorporated into
advanced courses, and graduate students and postdocs will develop and
report a more sophisticated understanding of an important area of
science. The previous emphasis on involvement of women in the research
program will continue. Advanced computer programs for analysis of
properties of polymers will be made available to the scientific
community. The more acurate theoretical understanding of properties will
lead to advances in commercial polymer technology and the amide group
aspect of the work have will an important impact in the study of
biological systems.